Digital Imaging for Ice Core Analysis

This award is for support for two years to develop the technology and methodology for digitizing the photographs and analyzing the thin sections from ice cores. In addition, the application of digital technology for whole-core stratigraphy, using digital photography, image enhancement and image processing will be investigated. The thin section analysis will be piloted with samples already in hand from the Taylor Dome ice core. If successful, these techniques will be applied to samples from the Siple Dome ice core, in cooperation with Principal Investigators already funded to retrieve and examine these sections. The original digital images with all original data annotation files will be distributed to Siple Dome principal investigators for their use in the interpretation of their own data. All software and hardware acquired for this project will become part of the permanent equipment inventory at the U.S. National Ice Core Laboratory and will be available for use by clients at the facility.